Improving Steel Design and Fabrication Using Integrated KBES-CADD

The construction industry in the United States is highly fragmented. An example is the partitioning of work phases among multiple entities in the design, fabrication, and erection of structural steel. Division of the design, detailing, and construction phases results in a lack of communication of engineering information crucial to providing the optimal total product. The objective of this research is to improve the quality of steel structures by improving communication between the designer and the fabricator and improving the use of design information by both parties. This will be achieved through an integration of knowledge-based expert systems (KBES) with computer-aided design and drafting (CADD). Such a computer system, using a standard format for data, facilitates the managing and transferring of design information between the designer and fabricator and enables the use of that data for improved design decision making. A prototype system will be developed, evaluated and verified using real design cases, refined using feedback from both fabricators and designers, tested in small trials by potential users, and evaluated and documented to expedite transfer to industry use. This will produce a tool to significantly improve the efficiency and effectiveness of the steel industry.//